Septal Regulation of Hippocampal Gamma (40-100 Hz) and Ripple (200 Hz) Patterns and Memory

Lay Abstract (0090451)

The means by which large numbers of neurons (ensembles) effectively
interact is not well understood. Recent findings demonstrate thousands of
hippocampal neurons participating in specific fast-frequency patterns
[theta-modulated gamma (40-100 Hz) and sharp wave modulated ripples (200
Hz)]. These in vivo patterns likely support the memory functions performed
by the hippocampus and interconnected structures (e.g. medial septum).
Local application of drugs into the medial septum of rats will be used to
manipulate both memory formation and hippocampal electrophysiology. This
project will determine the role of septal neurons in regulating gamma and
ripple frequency patterns and the relation between these ensemble patterns
and memory.
The medial septum and the hippocampus are brain structures critical
for episodic memory formation. While the functions supported by particular
brain structures are fairly well understood, how large numbers of neurons
effectively interact to support emergent function is not. The hippocampus
exhibits specific patterns of activity during which thousands of neurons
discharge in transient gamma (40-100 Hz) and ripple (200 Hz) frequency
patterns. These patterns may play a role in organizing the discharge of
individual neurons into ensemble patterns, similar to the manner in which
the precise timing of miniature lights on a large scoreboard can create a
coherent message or picture. What role these organizing patterns actually
play in memory formation is not yet known. This project will manipulate
gamma and ripple frequency patterns, and determine the effect on memory
formation. The results are likely to advance understanding of the
function of fast-frequency ensemble patterns.